Deposition and Characterization of Novel Spin Dependent Tunneling Junctions

9700168 Wang Researchers will study spin dependent tunnelling junctions consisting of two ferromagnetic electrode layers separated by an insulating barrier layer. The growth, structure and performance of such junctions fabricated from Heusler alloys will be investigated. These devices have significant technological potential in magentic RAM, sensors and recording heads. ***